Single-Complex Spectroscopy of Photosynthetic Systems

Struve
MCB-9904612

This project will examine fluorescence excitation spectra of light-harvesting pigment-protein complexes from green bacteria, blue-green bacteria, and higher green plants. Far-field optical techniques with ~ 1 micron spatial resolution will be used to selectively excite and detect chlorophyll and bacteriochlorophyll fluorescence from single complexes at low temperatures. This will greatly simplify the interpretation of their electronic spectra. The latter are ordinarily featureless, smeared by protein inhomogeneities in bulk samples; they become highly structured and analyzable in single-complex spectra. The target systems include Fenna-Matthews-Olson trimers and chlorosomes from green bacteria, photosystem I trimers from cyanobacteria, and photosystem II antenna -reaction center complexes from spinach.

Single-molecule spectroscopy (which has been little applied to pigment-protein complexes so far) offers inherently far higher information content than conventional spectroscopy. It can bear new clues regarding the 3-dimensional organization of light-harvesting molecules, the amount and importance of protein disorder, and the strength of the intermolecular interactions underlying their energy transfer role. It can provide novel and decisive evidence for the correct assignment of absorption bands to specific(groups of) molecules identified in protein crystal structures - a key step toward the long-term goal of understanding protein structure-function relationships.